Student Travel for Robocup 2001 Conference ( Seattle, Washington)

Carnegie-Mellon University is hosting the ROBOCUP-2001: The Fifth International Symposium, Competitions, and Demonstrations, in Seattle, Washington in the Summer 2001. The event is sponsored by the American Association for Artificial Intelligence (AAAI). The award will pay for the travel of 40 students, $500/person, to the ROBOCUP.